CAREER: Strain Engineered Mixed Ionic Electronic Conducting Solid Oxide Fuel Cell Anode Catalysts

1254453
Nicholas, Jason D.

Fuels cells are electrochemical devices used to convert the energy stored within the chemical bonds of the fuel into electrical energy and/or heat. Solid Oxide Fuel Cells (SOFCs), which have efficiencies of 60-85%, highest of the hydrocarbon-based electricity production technologies, achieve this by allowing oxygen ions to pass through an electronically insulating solid membrane; and in the process producing electricity by forcing the oxygen electrons to circumvent the membrane via an external circuit. By electrochemically oxidizing fuel in this manner instead of combusting it, SOFCs have demonstrated combined heat and power efficiencies more than twice those obtained in conventional fossil fuel-fed power plants. Unlike other types of fuel cells that can only run on hydrogen, SOFCs can operate on a variety of fuels such as hydrogen, biogas, gasoline, natural gas, jet fuel, and methane.

With their ability to run on both hydrocarbon and hydrogen fuels, why have SOFCs not become a primary energy conversion solution? Two of the most daunting obstacles to SOFC commercialization are 1) a lack of SOFC electrode catalyst materials with desirable surface properties at operating temperatures less than 600C, and 2) a lack of catalytically active, high conductivity, redox stable, coking resistant, sulfur tolerant, SOFC anode materials which will allow SOFCs to operate on dry, commercially-widespread hydrocarbon fuels. Professor Jason Nicholas of Michigan State University believes that the pool of available materials may already contain those which will do the job, including mixed ionic electronic-conducting lanthanum strontium chromium magnesium oxides. The National Science Foundation is awarding the Faculty Early Career Development (CAREER) Program Award to Nicholas to systematically evaluate the hypothesis that the necessary surface properties and the catalytic activity and selectivity of these mixed ionic oxides can be enhanced through the application of an external biaxial stress. Although thin film catalysts will initially be studied, the PI intends to fabricate and elucidate the behavior of nanocomposite SOFC anodes containing strain engineered catalysts by a number of standard methods. In addition, the investigator will develop a novel curvature relaxation measurement technique which will allow oxygen surface exchange measurements to be performed in situ and in operando without the distortions caused by electrodes, yielding data not previously available.

The proposed work will advance the field of catalysis by systematically elucidating, for the first time, the full relationship between stress, structure, electrochemical properties, temperature, and oxygen partial pressure in a SOFC anode electrocatalyst. The investigator plans a wide program of educational outreach activities as a feature of the CAREER award, extending to high school students, undergraduates and teachers. A specific activity will be to provide mid-Michigan Girl Scouts with an annual Michigan State University visit day aimed at introducing K-12 girls to the Science, Technology, Engineering and Math (STEM) disciplines.